SBIR Phase I: Materials Non-Destructive Evaluation Expert System

This research evaluates the feasibility of producing a Non-Destructive Evaluation (NDE) expert system. The study will incorporate elements of computer-enhanced ultrasonic signal processing, artificial intelligence "learning" capability, state-of-the-art fracture mechanics analytical tools, and all relevant metallurgical and design data necessary to emulate the decisions of the panel(s) of experts typically involved in generating and dispositioniong NDE data. The demonstration system will serve as a model for the development of a general purpose, prototype NDE expert system.